Modern Carbonate Environments, Diagenesis, Soil Formation and Pleistocene Analogues

This workshop is addressed to undergraduate college faculty who teach courses in historical geology, paleontology, petrology, or related fields, and who have had little or no experience in modern carbonates. The purpose of the workshop is to expand the participant's understanding of modern carbonate sediments, precursors of ancient carbonates, and post depositional changes that affect them. Specific topics to be examined include carbonate-secreting organisms, sediments, environments of deposition, carbonate diagenesis, soil formation and interpretation of Pleistocene analogues. This workshop will also provide the participant with an opportunity to acquire photographs of specific carbonate environments and to collect samples which may be used to enhance instruction at his/her home institution. A guidebook, approximately 100 pages in length, will be prepared and provided for each participant. Sets of slides of features requiring special equipment will be provided to each participant including such material as underwater photographs and photomicrographs. The program involves daily field work, labs and lectures and will be held at the Bahamian Field Station, San Salvador, Bahamas. As much of the field work will involve snorkeling, participants must be able to swim.//